Structure, Rotation, and Magnetic Fields in Starless Bok Globules

Structure, Rotation, and Magnetic Fields in Starless Bok Globules. In order to better understand the conditions of star formation and processes in molecular clouds, Dr. Clemens will carry out an investigation of the relation between the structures and kinematics of small clouds and the properties of the magnetic fields threading those clouds. This study is aimed at understanding the physical conditions present in clouds prior to star formation, in particular the occurrence frequencies, distributions, and natures of embedded magnetic fields and angular momenta. Correlations will be sought between the magnetic and kinematic properties, such as aligned magnetic and rotation axes, vorticity or streaming of the field lines, and length scales in the magnetic field and gas clumps.